A Multimillennial Temperature Reconstruction from Far Northeastern Eurasia

Abstract ATM-9709661 Hughes, Malcolm K. University of Arizona Title: A Multimillennial Temperature Reconstruction from Far North-Eastern Eurasia This award supports the reconstruction of an annual resolution history of summer temperature in far north-eastern Eurasia. This is at the center of the largest longitudinal sector of the Arctic lacking such a record. The annual rings of larch trees from the Lena-Indigurka coastal lowlands contain a remarkably clear and strong summer temperature signal. Approximately 66% of the variance of summer temperature is accounted for by the tree ring series, and there is reason to expect adding maximum latewood density data will increase this. A tree-ring series for this region has already been established back to AD 1200, and a temperature reconstruction back to AD 1400. Wood preserved in permafrost has been identified as being from several earlier periods, particularly the first millennium AD and the first millennium BC. Extending this reconstruction to two or more thousand years length will allow natural climate variability in Arctic summer conditions to be placed in the context of time scales from interannual to centennial.